Acquisition of a Fourier Transform Infrared Spectrometer

This award is for the purchase of a Fourier Transform Infrared Spectrometer, to carry out materials research in quantitative surface depth profiling of polymers, reflectance spectroscopy of monolayers, physical properties and structure of polyamides and fabrication of integrated circuits. The unusually high sensitivity of infrared spectroscopy to molecular structure and environment as expressed through peak frequency, area, intensity and half-width establishes the technique as essential for new insight in these materials research areas. The chemical and physical information available from vibrational spectroscopy is vital to an increased understanding of materials. The proposed instrument will provide a high degree of flexibility in terms of data acquisition, software modification and hardware control imperative to the design and execution of state-of-the-art materials science research.